Casson-type invariants in dimension four

The principal investigator applies gauge theoretic methods to the
little studied class of 4-dimensional manifolds, namely, smooth
manifolds having integral homology of the 3--sphere times the
circle. These manifolds arise naturally as the doubles of homology
cobordisms of integral homology spheres. They remain rather elusive,
mainly because the conventional approach via Donaldson polynomials
and Seiberg--Witten invariants fails due to the lack of second
homology. Instead, the investigator studies the flat moduli spaces
on such manifolds. A creative count of flat connections leads to an
invariant reminiscent of the Casson invariant for homology 3--spheres.
The investigator works on developing a torus surgery theory modeled
after Casson's surgery formula and Fintushel--Stern's knot surgery on
4--manifolds, with the view of using it to relate the above
Casson--type invariant to the classical Rohlin invariant. This
approach is expected to lead to solution of some old and difficult
problems concerning homology cobordisms of integral homology
3--spheres, smoothing of topological 4--manifolds, and triangulation
of topological manifolds in higher dimensions. A part of the above
program is a calculation of the degree zero Donaldson polynomial,
which is of great interest in its own right. For mapping tori of
integral homology spheres, the Donaldson polynomial is identified
with the equivariant Casson invariant. For homology 4--tori, it is
equal to the Seiberg--Witten invariant, at least modulo 2, thus
partially confirming the Seiberg--Witten conjecture.

The proposed research is an investigation of various properties of
manifolds in dimensions three and four by methods of gauge theory.
These methods, rooted in theoretical physics, have revolutionized
low dimensional topology. In the past twenty years, they have been
actively used to solve many difficult problems. Nevertheless, their
potential is far from being exhausted: the researcher initiates
application of gauge theoretic methods to a special class of
manifolds which was overlooked until recently but which is crucial
for understanding several fundamental questions of topology and
topological field theory. In addition to advancing knowledge in
these specific areas, the research has a broader educational impact.
The principal investigator's teaching experience shows that the
graduate classes based on the above topics are of great interest to
students in both mathematics and physics, thus promoting closer
cooperation between the two sciences. The researcher intends to
develop further topics courses, and offer parts of his program as
independent research projects for graduate students. The research
results will be broadly disseminated at scientific conferences, in
professional journals, and on the internet.